S-STEM: Encouraging students to pursue an engineering education and career

Software Engineering (34)

The Embry-Riddle Aeronautical University College of Engineering S-STEM program is providing thirteen $10,000 scholarships to students in computer science and in computer, mechanical, software and electrical engineering. Students participating in the program are being provided with one-on-one advising, participation opportunities in interdisciplinary real-world engineering projects, internship opportunities, and research assistance and educational support for their research project. Additionally, participants are receiving all of the benefits of the school's pre-existing career services department, including access to job fairs, interview preparation, resume development assistance, and direct connections to industry recruiters.